Image Processing System Enhancement

Image processing is an important activity which impacts numerous research areas in engineering, biology, physics and medicine. This equipment grant will upgrade the facilities at the Image and Pattern Analysis Laboratory at the University of Tennessee, which is actively involved in research dealing with image processing, pattern recognition and robotics.